USD Noyce Scholarship Program

This project is a cooperative effort to produce twelve highly-qualified secondary science and mathematics teachers for regional high need school systems in California. It involves the College of Arts and Sciences and the School of Leadership and Education Sciences at the University of San Diego (USD), the San Diego Unified School District, and three community colleges, Grossmont College, San Diego Mesa College, and San Diego City College.

Intellectual Merit: The program uses and expands upon several strong teacher preparation initiatives within the teacher preparation programs already in place at USD. For example during their early (induction) years of teaching, teachers will be supported through two existing programs, an Induction Mentoring Partnership Program and a research-based induction program, in which new teachers are mentored by content specialists and by Nationally Board Certified Teachers. Research within the project on the effectiveness of these approaches is adding to the knowledge base concerning effective approaches to science and mathematics teacher preparation.

The broader impact resides in the high need school districts benefiting from the graduates of the Noyce scholarship program and the deepening ties developing between USD and its community college and school district partners as they realize the part each can play in strengthening science and mathematics teacher preparation.